Patterns Arising Through the Continuous Spectrum

9971703
Sandstede

Nonlinear waves arise in a variety of applied problems. One important
example is the propagation of pulses, and pulse trains, in optical fibers.
Other examples are fronts and spiral waves that arise, for instance, in
autocatalytic reactions or during cardiac arrhythmias. This project is
concerned with investigating such patterns and their interactions using
analytical techniques. Specifically, the existence and stability of multi-
bump pulses in partial differential equations with phase symmetries such
as the complex Ginzburg-Landau equation is addressed. Another issue is
to understand the interaction between small Turing patterns and large
fronts or pulses that may lead to modulated time-periodic waves. While
the interaction between pulses is amenable to a finite-dimensional (though
not standard) perturbation analysis, it seems difficult to explain the
interaction between Turing patterns and fronts by a reduction to a finite set
of equations since this interaction involves the continuous spectrum.
Another problem where the continuous spectrum becomes important is the
interaction between a planar spiral wave and the boundary of a domain. It
is planned to explore this interaction in more detail in order to facilitate
the comparison of theoretical predictions for planar spiral waves with
experiments and numerical simulations that are carried out on bounded
domains.

Using optical fibers for the transmission of information bits over long
distances has become an important issue in telecommunications. An
optical pulse that is sent through an optical fiber encodes a single bit of
information. If the fiber were capable of supporting multi-bump pulses in
a stable fashion, these could be used to encode multiple bits of
information. It is part of this project to study the propagation and
interaction of pulses in certain nonlinear optical fibers taking loss along
the fiber and amplification into account.